Program Analysis and Compilation Techniques for Logic Programming and Concurrent Logic Languages

Dataflow analysis techniques which lead to better compilation comprise the focus of this project. These are applied to high performance Prolog as well as concurrent logic languages and wide-spectrum languages. First techniques for recognizing dead data structures are verified and prototyped and then compilation methods which utilize them are developed. Then these as well as techniques for detecting single-consumer data structures and deadlock are applied to concurrent logic languages and wide-spectrum languages. A theoretical methodology for power comparison is then applied.